Summer Undergraduate Research Experience

This grant will continue a Research Experiences for Undergraduates Site in the Department of Physics of the University of Michigan-Ann Arbor. Ten physics majors from across the nation will participate with about 15 Michigan physics majors in a 10-week research experience. A two-week shop class and radiation safety training are given to all student. Weekly colloquia on diverse research topics and lab tours are given by Michigan faculty. Weekly social activities as well as field trips to places like Fermilab are planned. The last week is dedicated to the presentation of student talks summarizing their summer's research.